Quantum Logic, Quantum Information and Quantum Computation

Quantum logic is the study of the deep structural properties of quantum mechanics, the fundamental physical theory of matter and energy. This project involves three aspects of research in quantum logic and its applications: (1) the philosophical foundations of quantum logic, (2) the use of situation theory to describe information transfer in quantum mechnical systems, and (3) fundamental questions about the nature of computation raised by the possibility of quantum computers. (A quantum computer is a quantum mechanical system that performs abstract computations. Some computations can run on quantum computers for significantly lower cost than they run on physcial computers.) The topics are linked in the following way. Quantum logic supplies the algebraic structure necessary for situation theory, which in turn offers a formal model of information transfer in quantum mechanical systems. Quantum logic underlies the logic gates of quantum computers, much as classical logic characterizes the logic gates of classical computers. Quantum situation theory is useful for evaluating arguments about the non-local character of certain quantum systems that may be used to send information faster than the speed of light. Together, quantum logic and quantum situation theory will allow the PI to address questions about the essential nature of quantum computation and its relationship with classical computation.